Mathematical Sciences: 1993 SUNYA Topology and Group Theory Conference

9310229 Turner This award provides partial support for the fifth and sixth annual SUNYA Topology and Group Theory conferences, October 29-31, 1993, and October 14-16, 1994, in Albany, New York. The conferences concentrate on combinatorial group theory and low dimensional topology. The invited speakers are Warren Dicks, Mark Feighn, Frederic Paulin, Robion Kirby, Peter Kropholler, and Zlil Sela for 1993 and will be of similar number and expertise for 1994. ***